Stressed Stream Analysis: Addressing Real Environmental Problems to Stimulate Undergraduate Faculty Enhancement

The Center for Applied Aquatic Science and Aquaculture is conducting a three-week summer project for undergraduate faculty that demonstrates environmental problem-solving as an effective teaching strategy to stimulate undergraduates' interest in environmental science. Using the theme of Stressed Stream Analysis participating faculty will study NEPA-based environmental analysis concepts and techniques and work in teams to prepare an Environmental Impact Statement for a proposed pollution source in a disturbed stream ecosystem. Concepts and skills participants will explore include: habitat evaluation procedures, using biotic indices, electrophoretic and microscope techniques to evaluate pollutant effects on organisms, and water quality analysis of nutrients and metals in a stressed stream ecosystem.